Travel to the ACM/SIGIR International Conference on Researchand Development in Information Retrieval: Brussels, Belgium: September, 1990

This is a proposal requesting travel funding for fifteen participants in the ACM/SIGIR International conference on Research and Development in Information Retrieval. This conference is being held in cooperation with the (U.S.) Association for Computing Machinery (AMC)/SIGIR Special Interest Group in Information Retrieval (SIGIR). Topics covered include information retrieval theory, artificial intelligence and information retrieval, interface issues, hypertext and multimedia systems applications, and implementation issues.